SDCI Sec Improvement: Enhancing Bro for Operational Network Security Monitoring in Scientific Environments

Over recent years, significant effort has gone into ensuring high
availability and integrity of NSF-funded large-scale computational
research cyberinfrastructure. This project targets the improvement
of a particular security component that is widely used to protect
these NSF investments: the open-source "Bro" intrusion detection
framework, which is deployed by major universities, large research
labs, supercomputing centers, and open-science communities. Bro's
popularity is a two-edged sword, however, as it comes with demands
that are often difficult to meet for the small research team behind
the system. Therefore, this work establishes a sustainable
development model for Bro by providing explicit engineering
resources outside of the scope of research efforts, and uses them to
advance the system to a state at which Bro's user community can take
a more active role in its future development.

More specifically, this project (1) improves the perspective of
Bro's end-users by providing extensive up-to-date documentation and
support, and refining many of the rough edges that the system has
accumulated over time; (2) unifies and modernizes Bro's current code
base that has evolved over 14 years of active development; (3)
improves Bro's processing performance to the degree required for
operation in current and future large-scale scientific environments;
and (4) adds new data analysis functionality in the form of a highly
interactive graphical user interface and a transparent database
interface. By specifically addressing much of the feedback the Bro
team has received from users, the project enables a wide range of
new sites to use Bro effectively for protecting their
cyberinfrastructure.